Purchase of Glove Box and Vacuum Line Systems for Materials Synthesis & Characterization

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Youngstown State University will acquire a Glove Box and Vacuum Line Systems for Materials Synthesis and Characterization. This equipment will enable researchers to carry out studies on NS heterocyclic materials, organometallic crystal engineered materials, alkanethiol monolayers, monolayer organometallic films, metallocenophanes, organometallic nanoscale rigid-rod and star-shaped materials, and solid state nitride/fluoride compounds.

Research-grade glove boxes enable researchers to handle air-sensitive materials. This equipment will enrich the materials-related research program at Youngstown State University and also provide hands-on experience for undergraduate and masters students in the advanced inorganic chemistry and polymer science laboratory courses.